Chapman Conference on the Fate of Particulate and Dissolved Components Within the Amazon Dispersal System; River and Ocean.

This proposal requests partial support for travel (mainly international) to an American Geophysical Union Chapman Conference on the Amazon River dispersal system. The conference will be held in the U.S. and will bring together the scientists (principally South American and U. S. scientists ) who have been studying the Amazon River and the dispersal of its sediment onto the adjacent continental shelf. The conference will promote international collaboration of geologists, oceanographers, and climate modelers and will provide the most effecient mechanism for an international group of scientists to share and synthesize the results of their various research projects underway or completed over the last decade.